Anemone Mechanoreceptor Structure and Function

The discharge of nematocysts on sea anemone tentacles is regulated by vibration-sensitive mechanoreceptors (VSMs). These VSMs have the useful attribute of being tuned to lower frequencies by chemoreceptors for N-acetylated sugars, and to higher frequencies by chemoreceptors for amino compounds. Thus, frequency responsiveness can be modulated upward or downward depending on the presence of different chemical agonists. Furthermore, the morphology of the VSMs is significantly affected by the agonists. Exposure to N-acetylated sugars induces the VSMs to elongate, whereas exposure to amino compounds induces the VSMs to widen at the base. Hence, agonist effects on VSM structure can be analyzed in relation to agonist effects on VSM function. In this project, parallel studies will be conducted in which VSMs are measured, and nematocyst discharge is tested after exposing sea anemeones to specific chemical agonists. The resulting data will be used to develop models predicting frequency and amplitude responsiveness according to the morphology of the VSMs. In addition, the effects of agonists on the ultrastructure of stereocilia comprising the VSMs will be determined. The proposed research will examine the relationship between structure and function for dynamic VSMs, and open the door for investigations on the molecular basis for VSM tuning. This project addresses a topic of fundamental importance to the survival of primitive animals, in that the research has direct implications for understanding how sea anemones select and capture prey. The VSMs on the tentacles of sea anemones are similar in morphology to the VSMs of the acousticolateralis system of vertebrates, in that in each case the VSMs comprise a bundle of stereocilia. Because the sea anemone VSMs are induced by chemoreceptors to alter their shape and responsiveness to vibrations, they are ideally suited for evaluating structure in relation to function. Furthermore, the project has relevance to the broader topic of biosensors.